Travel: NSF Student Travel Support for the 2026 IEEE International Conference on Big Data (IEEE Big Data 2026)

The 2026 IEEE International Conference on Big Data (IEEE Big Data 2026) will be held in Phoenix, Arizona, from December 14–17, 2026. IEEE Big Data is a premier international venue for research on big data systems, analytics, learning, foundation models, and applications. The conference also includes student-focused activities such as the Ph.D. Forum, the Undergraduate and REU Consortium, the High School Symposium, mentoring opportunities, workshops, and community-building events. The proposed travel awards can cover a range of costs and will support outstanding students at different stages of training as they participate directly in one of the leading venues for big data research. Awardees will present research results, receive technical feedback from leaders in the field, and gain exposure to emerging research and interdisciplinary directions. For many students, especially those at institutions with limited travel resources, in-person participation will accelerate research maturity, strengthen communication skills, and create collaborations that would otherwise be difficult to establish. Awardees will carry new knowledge, methods, and professional connections back to their home institutions and amplify the impact through research groups, classrooms, and peer mentoring. The project therefore benefits the supported students and the broader academic and professional communities they influence.
In recent years, big data has become a foundational driver of discovery and innovation across science, engineering, medicine, public health, business, government, and education. The conference spans major topics including big data science and foundations, infrastructure, management, search and mining, learning and analytics, data ecosystems, foundation models for big data, big data applications, benchmarks, blue-sky ideas, and big data for science. In addition to the main research program, the conference includes an industry and government program, workshops, tutorials, a Ph.D. Forum, an Undergraduate and REU Consortium, a High School Symposium, posters and demonstrations, Big Data Cup challenges, and student volunteer opportunities. IEEE Big Data provides an effective venue for student professional development across the educational pipeline, from high school through graduate study.